Conference: Keystone Symposia Meeting on "RNA Silencing Mechanisms in Plants"; to be held February 21-26, 2010 in Santa Fe, New Mexico

Intellectual merit:
The 2010 Keystone Symposium on RNA Silencing Mechanisms in Plants will be held February 21-26, 2010. The meeting will provide a forum for scientists working in different areas of RNA silencing in plants to present their results and to discuss with other experts in the field. Plants have evolved a number of novel proteins acting in various RNA silencing pathways (e.g., Pol IV and Pol V in small RNA-mediated epigenetic modifications) and it therefore is important to maximize the possibilities for information exchange among a diverse group of plant scientists. The comprehensive meeting program will allow cross-fertilization among various subfields of RNA silencing and give participants from industry an excellent overview of current research and its potential applications to agricultural biotechnology. Students and postdoctoral scientists that attend will be able to hear, and interact with, the top scientists in the field. They will be encouraged to present posters, which is one of the most effective ways to network and interact with other scientists for current and future career activities. Additionally, students and postdocs will be selected to deliver oral presentations during several sessions. The organizers are committed to selecting diverse speakers from among the student and postdoctoral pool.

Broader impacts:
This meeting will enhance education by acquainting students, postdoctoral researchers, and investigators new to field with state-of-the-art science in this area and by providing them with critical scientific feedback on their own efforts. For these individuals, the meeting will also promote career development by including opportunities both to see successful scientists presenting cutting-edge science and to network with prospective mentors and others who might contribute to their scientific and professional development.